Doctoral Dissertation Research in Political Science: Motivated Information Processing: A Policy Case

Why do people so often hold tight to their political attitudes, even in the face of contradictory evidence? This project focuses on the ways in which our goals and desires can shape how we evaluate, remember, and experience politically relevant information. Several policy issues in the United States today are highly contentious. Disagreement at times centers not on how best to tackle the problem, but on whether the problem exists. This project draws from several literatures to hypothesize that the motivation to protect the economic system in the United States may impact the way that individuals process information about policy issues.

System Justification Theory posits that individuals are motivated to defend, bolster, and justify the socioeconomic and political arrangements in which they live. This motivation is stronger in some people than others and can also be affected by situational factors. System justification is often beneficial in the short term, in that it alleviates the anxiety, uncertainty, and fear elicited by threats to the status quo. However, in the long term system justification can interfere with intentions or active attempts to correct system-level problems. Recent empirical evidence indicates that, to the extent that policy initiatives are seen as threatening to our economic competitiveness, individuals may be motivated to deny problems in order to maintain the societal status quo. This research has also demonstrated that ideological differences in policy attitudes between those who identify as partisans are at least partially due to individual differences in system justification motivation.

But how are policy beliefs maintained in the face of contrary evidence? Recently, political scientists have begun to explore the possibility that the way we interpret political information is driven largely by motivational forces. In this dissertation, I explore the hypothesis that system justification motivation biases processing of policy evidence. Using surveys, qualitative data, and experimental methods collected from diverse samples across the United States, I examine the perceptual and cognitive mechanisms by which system justification motivation operates. Specifically, I explore how the public processes information, both in their day-to-day lives and when exposed directly to new information. Using knowledge gleaned from these studies, I will then explore potential interventions to help individuals overcome the effects of system justification motivation and redirect them toward more accurate processing of policy information.

This research integrates theory and methods from political science and social psychology. In doing so, it aims to make basic and applied contributions to the political information processing, motivated cognition, system justification, and policy attitudes literatures. First, it aspires to offer a more nuanced consideration of the psychological underpinnings of political identification in order to better understand ideological and partisan variability in resistance to change. Second, this research hopes to demonstrate that cognition may be affected by situational, system-serving needs rather than merely the desire to maintain one’s own prior beliefs or the beliefs of one’s social groups. Third, it offers a political psychological account for the ineffectiveness of policy education and programs to address disagreement.

This research also aims to suggest interventions that may inspire public policy directed at minimizing biased information processing. It aims not to persuade individuals that various policies are an urgent concern, but rather to provide them the tools to reach objective conclusions about policy information themselves. It also has important implications for education. Findings in support of the research hypotheses would encourage an increased focus on critical thinking and logic, and increased exposure to and skills in interpreting policy information. By disseminating findings from this project both in peer-reviewed journals and to educators, interdisciplinary solutions to complex political problems might be found.